Ergodic Theory Workshop

This award will provide support for participants, especially women, graduate students, postdocs, and young faculty, in the "Ergodic Theory Workshop" that will be held on the University of North Carolina-Chapel Hill campus from April 29 to May 2, 2010.

This conference focuses on five major topics in ergodic theory: multiple recurrence, pointwise convergence of nonconventional ergodic averages, pointwise convergence of ergodic averages along subsequences of integers, cocycles and functional equations, and return-time phenomena. All of these are central and extremely active areas of current ergodic theory research. The format of the workshop is such that young people will have ample opportunities to speak and otherwise be engaged in the various conference activities.